Particle Simulations in Fluid Dynamics and Molecular Dynamics

Krasny
0107187
The investigator develops new computer algorithms for
particle simulations in fluid dynamics and molecular dynamics,
and he employs the algorithms to study important application
problems. The main technical tool is a new adaptive treecode
algorithm for solving the N-body problem in the context of
long-range particle interactions. In this algorithm, the particle
forces or velocities are evaluated using Taylor approximation in
Cartesian coordinates, and the necessary Taylor coefficients are
computed by a recurrence relation. The adaptive features include
a divide-and-conquer evaluation strategy, nonuniform rectangular
clusters, variable order approximation, and a run-time choice
between Taylor approximation and direct summation. The
investigator develops an optimal strategy for choosing the
parameters in the code, in order to maximize the accuracy and
efficiency of the algorithm. The application problems to be
studied in fluid dynamics include the onset of chaotic dynamics
in vortex cores, high precision computation of vortex sheet
roll-up and spiral formation in the Kelvin-Helmholtz problem, and
breakdown and transition in vortex rings. An important component
of the work is to compare regularized particle simulations with
experiments and with genuine viscous flows computed by finite
difference schemes. The application problems to be studied in
molecular dynamics involve potential energy and force field
evaluation for electrostatic interactions.
The results of this research affect several areas of
strategic national interest, including civil and military
aviation and biotechnology. One outstanding problem in aviation
is the simulation of the trailing vortex wake that forms behind
an aircraft on takeoff and landing. The vortex wake is a serious
hazard to other aircraft, especially in crowded airports. It
imposes a minimum time and distance between takeoffs and landings
on a given runway, and it is a source of wind shear, which has
been implicated in accidents. The project sheds light on the
structure and dynamics of vortex cores, and this helps
aeronautical engineers in designing vortex wake remediation
systems. In the area of biotechnology, one far-reaching problem
is to simulate protein folding in a physically accurate way. This
is in fact the next step required to make use of the data
collected in the human genome project. The project contributes by
enhancing the computer algorithms that are used by biochemists to
study protein folding. In the area of education and human
resources, the investigator directs an applied honors calculus
course for freshman science and engineering students, develops a
new graduate course on scientific computing, and mentors the
professional development of undergraduate and graduate students
and postdocs.